Strategies for Using Advanced Computer Architectures in Designing Complex Chemical Processes

The design, simulation, and optimization of complex chemical processes, whether steady-state or unsteady-state, can be made much more effective by the exploitation of machines that use advanced- computer architectures, such as those using vector and parallel processing. However, to take full advantage of such architectures, the formulation of the process flowsheeting problem, and, more importantly, the solution algorithms used to solve these problems, must be totally reworked. This is an important challenge and opportunity in the area of chemical process design. By using techniques developed for these architectures truly interactive design capabilities can be achieved that will greatly enhance the productivity of the design engineer and thus produce designs that are safer, more efficient and less costly. Strategies are developed for most effectively taking advantage of advanced computer architectures for the steady-state and unsteady state design, simulation and optimization of complex chemical processes using the equation-based approach. The techniques involve new, and sophisticated reordering methods for the sparse matrix problem that underlies chemical process simulation, as well as many other new ideas for the solution of these problems. Such techniques are being implemented on a wide variety of advanced-architecture machines.